K-through-Infinity Professional Development Partnership

This GK-12 program, K-through-Infinity Professional Development Partnership (K--+-PDP) is more closely coupling K-12 education with the excitement of discovery, and the understanding of scientific knowledge, experienced by "fellows"-graduate students and upper-division undergraduate students in the fields of science, mathematics, engineering and technology (SMET). The project is promoting and facilitating collaboration between university faculty and K-12 educators to effect a new type of university training that produces a generation of SMET professionals who are skilled in, and committed to, SMET education and service learning at all levels.
The ways that university researchers view and do science are important benefits that are now being shared with students and teachers in the K-12 schools. This initiative is providing K-12 students with the opportunity to learn how to do science from the example of a researcher who probes the unknown everyday. This program is transforming teachers into people who see themselves as "scientist-teachers," and transforming graduate student fellows-and by extension, their faculty advisors-into " teacher-scientists."